An Investigation of C60/C70 as a Lubricant on Magnetic Thin Film Disks

An exploratory evaluation will be made of the potential of C60 and C70 to serve as boundary lubricants on magnetic thin film disks. These minute hollow molecules are known to be very deformable and may possibly serve as load carrying rollers for extremely smooth surfaces. The tests will consist of measuring friction, and its change with time, between a regular ceramic magnetic head slider and magnetic disks on which various amounts of C60 have been deposited. The effects of moisture and gaseous environment will also be evaluated.